Geometric Group Theory and Surface Dynamics

Abstract

Award: DMS-0103435
Principal Investigator: Michael Handel

The proposal divides into four projects in the related fields of
two dimensional dynamical systems and geometric group theory.
The goal of the first, which is a collaboration with Mark Feighn,
is to compute, in a transparent, geometric and algorithmic way,
the centralizer of an element of the outer automorphism
group. The second is to continue the principal investigator's
study of the forcing order on braid types in the four times
punctured disk. This project has both an experimental and
theoretical part. Computer programs are used to generate
examples and to aid in the formation of conjectures. Once
conjectures are made that cannot be disproved by computer,
rigorous proofs will be attempted. The third project is a
collaboration with John Franks with the long term goal of proving
that generic area preserving diffeomorphisms of the two
dimensional sphere have dense periodic orbits. The more
immediate goal is to find analogs for generic area preserving
diffeomorphisms of the topological structure that is known to
exist for twist maps. The fourth is a collaboration with Lee
Mosher. The first steps in the project will be to identify and
study quasi-lines that can play the role in Culler Vogtmann space
that Teichmuller geodesics play in Teichmuller space.

This proposal is concerned with the interface between two areas
of mathematics: two dimensional dynamical systems and geometric
group theory. The former studies the long term behavior of
systems that evolve over time, while the latter treats algebraic
objects by geometric means. The fields have been intertwined for
more than fifty years and have been the focus of a great deal of
research in the past twenty. Part of the proposal focuses on two
long standing fundamental questions in two dimensional dynamical
systems. The first examines how simple systems change into
chaotic ones. The second concerns transformations of the sphere
that preserve area, and asks whether every piece of the sphere
contains at least one point that eventually (as the system
evolves) returns to its original position. There are two groups
(in the technical algebraic sense) that are most closely related
to two dimensional dynamical systems. They are the mapping class
group and the outer automorphism group. To understand the
geometry of a group one must understand its geodesics; i.e. what
the shortest paths are between any two points. The geodesics of
the mapping class group have been well understood for some time.
The principal investigator will generalize from what is known
about the geodesics of the mapping class group to identify and
study geodesics for the outer automorphism group.